Teaching Middle School Science as a Science

This project, sponsored by the Woodrow Wilson Foundation, is an 18 month project starting March 1, 1990. It is intended for 50 outstanding middle school and high school (grades 7-9) teachers who have the responsibility for teaching the first school physical science course. Funds will support: (1) the national recruitment and selection of the participants, (2) an intensive four-week summer course held on the campus of Princeton University which will include content instruction and the development of teaching materials, (3) publication of the most useful examples of the instructional materials prepared during the summer program and (4) stipends for outreach activities by the participants during the next academic year. A long-term goal of the project is to build a cadre of experienced, knowledgeable teachers who will become educational leaders and school resource agents. The National Science Foundation is a participant in a larger project whose total budget is $3,029,590. NSF dollars in the amount of $381,910 are therefore being matched approximately 8:1 with funds from other sources.